Purchase of a High Field FT-NMR

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules,and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research and educating students who will become the next generation of chemists. The Department of Chemistry at Colgate University will use this RUI award from the Chemistry Shared Instrumentation Program to help acquire a high-field NMR spectrometer. The acquisition will enhance the ability of the Department to educate undergraduate students and will enhance chemical research in the following areas: 1) Thermodynamic studies of metal-carbon bond formation in rhodium porphyrin compounds 2) Structural characterization and dynamics of organotin complexes 3) Gas phase kinetics of deuterated small cyclic hydrocarbons 4) Stereo- and regiochemical characterization of intermediates in the synthesis of echinosporin 5) Kinetic studies on mammalian carbonic anhydrases 6) Stereochemical characterization of rhodium-multidentate amine complexes.